Regulation of Nitrate Reductase in Barley

Through selection and characterization of nitrate reductase deficient mutants it has been demonstrated that barley has two nitrate reductase isozymes, one NADH specific and the other NAD(P)H bispecific. Little is known about the importance or regulation of NAD(P)H nitrate reductases in barley or other cereal species. This research will 1) develop techniques for specifically quantifying NADH and NAD(P)H nitrate reductase proteins and mRNAs, and 2) determine the effects of nitrate, light and reduced nitrogen on nitrate reductase proteins and mRNA using newly developed quantification techniques. Nitrate reductase mRNAs will be determined by using cDNA clones of each nitrate reductase as specific probes. Monoclonal and/or monospecific polyclonal antisera will be used to quantify nitrate reductase proteins.%%% Many higher plants, especially cereals, obtain nitrogen from the soil as nitrate. Nitrate reductase, a highly regulated enzyme, is often considered to be a key limiting step in the nitrate assimilation process in plants. This research will identify translational and transcriptional mechanisms which regulate specific nitrate reductase in barley. By developing a thorough understanding of the genetic and biochemical processes regulating nitrate reduction this research will contribute to improved nitrogen use efficiency in crop plants.***//